A Confocal Microscope for Biological Research

A confocal microscope system will be purchased for studies on such problems as the functional organization of neurons within a sensory system, the developmental mechanisms involved in neuronal and glial differentiation, the nature of the neural code, i.e., the algorithms through which information is encoded in neuronal spike trains, the functional organization of the anterior pituitary, the migration of cells on and through basement membranes in multicellular organisms, interactions between the cell surface of fungi and host tissues and the structural, elemental and molecular preservation of dinosaur tissues.